Archaeology of the North Alaska Coast: A Settlement Pattern Study from Point Franklin to Wainwright

9321112 SHEEHAN This archaeological project will recover data on prehistoric and historic occupations at Pingasagruk, Point Franklin, once a whaling village on Alaska's Chukchi Sea coast. The rapidly eroding site will provide comparative data on differential access to trade and resources in the region, and provide a background for interpreting the well-documented aboriginal warfare of the past. In addition to analyzing settlement abandonment phases, and the hiatus between the historic and prehistoric settlement at Pingasagruk, poorly documented outlying sites will be recorded using spatial domain radar (SDR). Information on house pit reuse and the vertical and historical extents of middens can be used to refine population estimates and patterns of resource exploitation. The project will be carried out in cooperation with Wainwright village residents and the North Slope Borough. Both students and elders will participate. ***